Mathematical Sciences: Combinatorial Properties of Polyhedra

This project is focussed on the combinatorial properties of convex polyhedra and their implications for linear programming and combinatorial optimization. Included in this are efforts to completely characterize the numbers of faces of simple, unbounded polyhedra and to further describe the algebraic properties of polytopes and PL-spheres.